STTR Phase I: Microfluidic CD Biochips for Enzyme-Linked Immunosorbent Assays

This Small Business Technology Transfer Research (STTR) Phase I project proposes to develop a novel microchip based enzyme-linked immunosorbent assay on compact disk (CD-ELISA) for rapid detection of biological molecules.

The commercial application of this project will be for detection of food-borne pathogens and toxins. The proposed system is expected to have the advantages of low cost, simple operation, parallel detection, fast response, and ease of automation.